Phospholipase A2 Neurotoxins, Small G Proteins and Exocytosis

The molecular events that culminate in exocytosis are unknown although recent work has suggested that small G-proteins regulate the movement and targeting of membranous structures and processes (membrane-trafficking) including exocytosis. Among the distinctive modifications of G-proteins that regulate cyclic interactions of these proteins with cellular membranes are polyisoprenylation and fatty-acylation of C-terminal Cys residues. Certain snake venom phospholipase A2 enzymes are extremely potent neurotoxins at the presynaptic terminal and block neurotransmitter release without structural damage to the nerve ending. The hypothesis to be tested is that these venoms may act to modify the small G-proteins and thereby block the exocytotic process of neurotransmitter release. This research has the potential for increasing understanding of exocytosis and providing molecular tools for the study of neurotransmission and exocytosis in a wide variety of cells and tissues.